Topics in Fractal Geometry, Dynamics, and Ergodic Theory

This project addresses problems in dimension theory of
dynamical systems and ergodic theory of tilings and substitutions.
In the first direction, it is proposed to study the dimension
characteristics of invariant sets for non-conformal dynamical
systems and natural measures on them. These questions are related
to problems on self-similar sets with overlap and arithmetic sums
of Cantor sets. The second direction concerns non-periodic self-affine
tilings, their generalizations, and symbolic analogs. There are many
links between the two directions; for instance, self-affine tiles often
have fractal boundaries, and number-theoretic issues
(e.g., the appearance of PV-numbers) are prominent in both areas.
The problems to be studied are concerned with dynamical and diffraction
spectra of tilings and substitutions.

The mathematical chaos theory deals with the appearance of chaotic
motions in dynamical systems (which are mathematical models of
various phenomena in physics, biology, economics, etc.). These
chaotic motions are often associated with various "fractal" phenomena.
The modern dimension theory uses a wide variety of tools to
study the fine structure of these motions and their invariant sets
(such as "strange attractors"). Still, many aspects of this
"fractal chaotic world" remain mysterious, and the proposed research
aims to get further insights into them. The second part of the project
is concerned with the so-called "aperiodic order," the hallmark
of which is the remarkable class of solids, discovered in the
early 1980's and called quasicrystals, which exhibit sharp diffraction
spectrum with a forbidden 10-fold symmetry. Penrose tilings,
discovered in the 1970's in a purely mathematical development, turned
out to be a good model for certain quasicrystals, but many open problems
remain, both on the mathematical and on the physical side.
The second part of the proposed research investigates some of these
problems using the techniques of ergodic theory and symbolic dynamics.